Interactions Between Homogeneous Dynamics and Number Theory

ABSTRACT

The problems that are to be addressed in this project involve,
on one hand, dynamics of flows on homogeneous spaces of Lie
groups, and, on the other hand, the multi-dimensional theory
of Diophantine approximations. Various connections between
these two fields have been found in the last two decades,
which significantly stimulated progress in both fields. During
recent years, the proposer's research has been centered on
developing new links between homogeneous dynamics and number
theory, which has resulted in solving many important problems,
as well as in creating new directions for further research.
The investigator is to continue his work on bounded trajectories,
growth rate of orbits, Diophantine approximation with weights
and Khintchine-type theorems on manifolds.

This project deals with algebraic dynamical systems and their
applications to number theory. Many problems concerning
simultaneous approximation of real numbers by rational numbers
can be cast in terms of the behavior of certain orbits.
Dynamical systems in the present context deal with how points
in a system move over time, given a set of differential equations
(or laws of nature) governing the system. It turns out that various
numerical approximations used in the theory of integer equations
can be better calculated once they are phrased in dynamical systems
language.